Summer Institute on Microscale Organic Laboratory Techniques

The NSF Summer Institute on Microscale Organic Laboratory Techniques is designed to assist faculty who contemplate undertaking this type of laboratory approach by introducing them to the experimental methods involved. The Institute is organized around a framework of lecture-demonstrations, laboratory exercises, and informal group discussions of microscale techniques. "Hands- on" laboratory experience is emphasized with particular attention paid to manipulative procedures involved in preparation, isolation, purification, and characterization of reaction products at the milligram level. The first Summer Institute on Microscale Organic Laboratory Techniques was conducted in 1986 with funding from the Alfred P. Sloan Foundation. The NSF Undergraduate Faculty Enhancement Program funded the 1988 Institute. Bowdoin has successfully supported the 1987 Institute and received funding for the 1989 and 1990 Institutes from the Pew Charitable Trust.